Multiscale Volatility Analysis for High-Frequency Financial Data

ABSTRACT
Proposal Id: DMS-0504323
Institution: : University of Connecticut
Principal Investigator: Wang, Yazhen
Title: Multiscale Volatility Analysis for High-Frequency Financial Data

Volatilities of asset returns are pivotal for many issues in
financial economics. They are the key ingredients for the pricing
of financial instruments, portfolio allocation, managerial
decision-making, and financial risk management. Existing financial
modeling mostly employs parametric models like GARCH and stochastic
models. These parametric models are used for modeling volatility
dynamics of low-frequency interdaily data and generally fail to describe
the volatility patterns in high-frequency intradaily data, partly because
high-frequency data have complex structures such as jumps and market
microstructure noise contamination. The investigator initiates an
innovative research on modeling and analyzing of high-frequency data.
By taking advantage of the fact that jumps, volatility and microstructure
noise tend to behave differently at different scales, he uses wavelets'
multiscale structure as a platform to realize the fact and perform efficient
volatility analysis for high-frequency return data. The proposed nonparametric
multiscale methodology is very flexible and applies to high-frequency data
with (a) microstructure noise, (b) jumps, and (c) leverage effect. It achieves
the following goals: (1) utilize all available data efficiently, (2) test and
detect jumps, (3) construct noise resistant realized volatility for estimating
integrated volatility, and (4) separate the jump variation from the total
quadratic variation.

Financial data are collected at increasingly shorter time horizons. Over
past decade there has been a radical improvement in the availability of
high-frequency financial data (which is referred to as intradaily data,
while low-frequency data mean financial data at daily or longer time horizons).
Nowadays high-frequency financial data are available for financial instruments
on markets of all locations and at scales like minute and even individual bids
to buy and sell. One example of high-frequency data is the currency
transaction data that are collected at every minute. High-frequency finance
is an emerging new and challenge research field. The proposed research
invents new statistical techniques to analyze high-frequency financial data
and accurately model and forecast financial markets. It
advances the understanding of high-frequency volatility and provides better
volatility evaluation for practitioners in financial industry, where mistakes
and wrong judgments can lead to catastrophic consequence for the industry and
the rest of society.